Research on Adaptive Signal Processing Methods

This research deals with the development, testing and mathematical analysis of adaptive signal processing algorithms based on higher-order statistics of the signals involved in the adaptation process and their applications. Different "criteria of goodness" in higher-order statistics domains and different adaptive filter realizations are being considered in the development of the new algorithms. Special emphasis is placed on the investigation of the numerical properties and performance of the algorithms. Performance metrics being considered include probability of error in the restored sequence as a function of SNR, sensitivity to signal statistics and data conditioning, rate of convergence, choice of sliding windows and finite work length effects. The performance of the new algorithms is compared to that of the existing ones to establish strengths and weaknesses. Finally, applications of the new algorithms are considered, e.g., in decision feedback equalization, in blind equalization, noise cancelling, and system identification.